Computer System for Prophet II

A Sparc workstation will be acquired and used with Prophet II to enhance computational biology projects, including the traditional use of statistical analysis, and also molecular modeling and macromolecular sequence databank searches. A broad range of physiological and cellular research areas will benefit from the new system.